Construction and Evaluation of Self-Luminescent Biosensors

This is a new award, prior related project to continuing grant ECS-8915294. It continues funding for the second year of work described in the original grant.